NSF/OCI Task Force Workshop II on Cyberscience Grand Challenges and Implications for Cyberinfrastructure

1030838
Oden
Support for the second OCI Task Force workshop on Cyberscience and Grand Challenge Communities is provided with this award. The funds will be used to help defray the costs of travel, hotel and per diem of the invited participants.